Purchase of a High Speed Transient Digitizer and a Low Temperature Dewar for Elucidating the Excited State Properties of Novel Oligonuclear and Mixed-Metal Complexes

This grant from the Chemical Instrumentation Program will be used to purchase a high-speed transient digitizer. The instrument will be used to collect data over very short time periods on high energy (excited state) molecules which are produced as the result of the absorption of light from a laser and which persist for less than a microsecond. An understanding of the properties of such species is important in chemical processes related to solar energy conversion. The instrumentation will be used primarily in studies of the photophysics of mixed-metal and oligimer complexes. It will be used to determine excited state lifetimes, activation energies, and transient decay spectra of excited state complexes.